Minority Graduate Research Honorable Mention - Barbara Ruef

This special award will give Ph.D. student Barbara Ruef additional flexibility in pursuing her graduate studies and research initiation in gene regulation in the protozoan Trypanosoma cruzi. This award will strengthen minority research participation in this area.